Arizona Rural Systemic Initiative

The work of the Development phase will coalesce around conducting a regional self-study; and establishing the basis and infrastructure upon which the school reform will be generated. Specifically, the Development phase will: establish local leadership teams (LLTs), coalition leadership teams (CLTs), and core management team (CMT). These teams--district, regional, and central, respectively--will manage the various aspects of the Development phase (e.g., LLTs will spearhead the Self-Study; CLTs will compile and identify resources; CMT will coordinate everyone's efforts).